CPS: Medium: A Cross-Layer Approach to Taming Cyber-Physical Uncertainties in Vehicular Wireless Networking and Platoon Control

This project proposes a cross-layer framework in which vehicular wireless networking and platoon control interact with each other to tame cyber-physical uncertainties. Based on the real-time capacity region of wireless networking and the physical process of vehicle movements, platoon control selects its control strategies and the corresponding requirements on the timeliness and throughput of wireless data delivery to optimize control performance. Based on the requirements from platoon control, wireless networking controls co-channel interference and adapts to cyber-physical uncertainties to ensure the timeliness and throughput of single-hop as well as multi-hop broadcast. For proactively addressing the impact of vehicle mobility on wireless broadcast, wireless networking also leverages input from platoon control on vehicle movement prediction. In realizing the cross-layer framework, wireless scheduling ensures agile, predictable interference control in the presence of cyber-physical uncertainties.

If successful, this project will lead to a general and rigorous framework for wireless vehicular cyber-physical network control that will enable safe, efficient, and clean transportation. The principles and techniques for taming cyber-physical uncertainties will provide insight into other application domains of wireless networked sensing and control such as unmanned aerial vehicles and smart power grids. This project will also develop integrative research and education on wireless cyber-physical systems through multi-level, multi-component educational activities.